Enhancing the Multimedia Experience in Emerging Networks: Rate-Distortion Optimization in Multimedia Networking

As multimedia processing and networking technologies, products and
services evolve, the number of people communicating interactively
is growing rapidly. Consequently, multimedia communication
services are starting to consume a considerable share of the
backbone traffic. This highlights the problem of transmitting
real-time media efficiently. Effective multimedia communication
demands appropriate media-aware and application-specific
solutions, without which the full benefits of such services will
not be realized. Poor approaches often lead to such system
performance degradations as unacceptable presentation quality
perceived by the clients, possible network collapse due to the
high-bandwidth nature of multimedia applications, and poor
performance observed by other network flows due to the
unresponsiveness of such applications.

Given the fact that existing protocol suites are unable to provide
the desired features, the study of media-aware transport protocols
is overdue. The focus of this research is on the design and
evaluation of end-to-end solutions for reliable multimedia
services. Nonetheless, it is a challenging task to develop a
generic solution that can satisfy the needs of the broad range of
multimedia applications available today. Such an approach would
result either in an unnecessarily complicated protocol that is far
beyond real implementation or in a very high-level one that cannot
exploit the specific features of the media. The investigators' aim
is to develop a suite of Multimedia Transport Protocols (MMTP)
that integrate media properties, application requirements, and
network characteristics in such a way that the presentation
quality is optimal in the rate-distortion sense.